III: Small: An end-to-end pipeline for interactive visual analysis of big data

Computer scientists, statisticians, and data scientists use sophisticated analysis techniques to extract insights from their massive sources of data, from astronomic data gathered from telescopes to climate simulations run on supercomputers to user activity in online social networks. At the same time, they would like to make use of interactive visualization, so they can understand and explore their data by means of graphics and visual interfaces. These visual analytics systems are more intuitive and more powerful, and allow analysts to make better decisions more confidently. Currently, these visualization systems are not fast enough for broad applicability in large-scale settings. In this project, novel techniques are developed to speed up the methods used in data analyses in order for stakeholders to combine the sophisticated analyses they need with the interactive visualization systems they prefer to use. This project has the potential to transform how current infrastructure and systems for interactive and exploratory data analysis are designed. Open-source software that integrates directly with the libraries and programming languages used by scientists and other data analysts will be broadly disseminated. In addition, the concepts and technologies developed here will be used in classrooms to train future generations of researchers and computer scientists.

There currently is a major obstacle for the application of interactive visualization systems in large-scale data analysis: many techniques require repeated loops (or scans) over the dataset in order to collect the appropriate aggregation information. The recently developed hierarchical, spatiotemporal data cube data structures replace many of scans, but are only suitable for basic bar charts, histograms, and heatmaps, since they accelerate only a small number of queries available to database management systems. In contrast, this project aims at developing novel data structures that support a broader swath of the exploratory data analysis and visualization pipeline, such as k-means, logistic regression, least-squares optimization, dimensionality reduction, etc., and connect these data structures directly to the APIs and calls made by visualization libraries that use these methods. The performance of proposed infrastructure for interactive and exploratory data analysis will be evaluated on specifically designed benchmarks to compare existing and novel interactive data cube systems. The benchmarks will enable synthesis of knowledge that is spread across a somewhat fractured research area. The benchmarks will, in turn, guide the evaluation of the development of improvement for these data structures, aiming at a decrease between 30% to 80% in storage costs, and likely comparable gains in preprocessing time, that translate directly into better interactive visualization capabilities. APIs for integrating these data structures in modern data science environments such as R and Python will be developed and widely disseminated in order to increase the impact of this project.